Conference on Lattice-Ordered Groups and f-Rings; Gainesville, FL; March 3-6, 2004

This award is to provide support for participation in the conference "Lattice ordered groups and f-Rings" at the University of Florida, Gainesville on March 3-6, 2004.
This meetinig is the first of two meetings on ordered algebraic structures planned for this year by the organizers. Overall, this meeting is seventh in the series that was initiated in 1998 at the University of Florida.
The funds requested will be used to bring participants (30-35 expected), including 4-7 graduate students.